Integration of Flexible Embedded Control System Design into the Mechanical Engineering Curriculum

9451817 Thompson This project is helping to carry out a plan to enhance a major component of the Mechanical Engineering curriculum. The plan requires modification of existing courses and introduction of new courses and laboratories. The objective is to prepare our engineering graduates to design dynamic physical systems which include intelligent sensors and actuators and embedded control systems. The changes needed to reach this objective are: 1. Strengthen the electrical engineering science component of our curriculum to provide more instruction in applied electronics and computer circuits. 2. Strengthen the dynamic systems modeling and analysis component of our curriculum to provide analytical and experimental methods in modeling, analysis and simulation of dynamic physical systems. 3. Strengthen the automatic control system design technical elective component of our curriculum to provide both analog and digital control system design, analysis and implementation. This project is creating a new integrated dynamics and control laboratory which will serve the two new courses and one of the modified courses. The laboratory incorporates seven different types of experiments (torsional mass, mass/spring/damper system, inverted pendulum, 3-D robot, heat transfer, electronic cooling, and mixing). The detailed design and manufacture of the experimental apparatus is being performed by teams of honors research students.